SGER: Coming to Know Mathematics: A Minority Perspective

This is a proposal to investigate how female and minority college students have come to know mathematics. Students will participate in a series of interviews that will focus on attitudes and beliefs about mathematics, previous mathematical experiences, how students deal with difficulities and problems in the learning of mathematics, how students relate mathematics to the real world, and how students communicate about mathematics. Results of these interviews will be used to understand patterns of student learning and how these patterns can be applied to instructional processes.